Robust, Incremental Parsing and Disambiguation for a Dialog Agent

The goal of this research is to achieve robust parsing and disambiguation of purposeful, spoken dialogs, where ordinary phrase and sentence structure may be disrupted by acknowledgements, self- editing, correction and clarification subdialogs, etc. The primary means for achieving robustness and on-line disambiguation will be (1) an incremental `dialog chart parser` that fully integrates all levels of analysis from the level of words and prosody to the level of dialog segment structure; and (2) a `preference trade-off` technique for selecting preferred analyses on-line, using lexical, syntatic, semantic, and discourse structure preferences encoded as numerical potentials. Potentials will be statistically `tuned` using available text corpora and the TRAINS planning dialog corpus collected at the University of Rochester. The significance of the research lies in the fact that dealing simultaneously with phrase structure and dialog structure, and coping with rampant ambiguity, are two of the most important challenges still facing natural human-machine communication. The advent of robust, preference-seekin g dialog parsers will provide a basis for genuine, practical dialog understanding in a wide variety of intelligent agents offering interactive assistance in planning, problem solving, crisis management, and information retrieval